PYI: Molecular Genetics of Forest Trees

During the initial phase of this five-year Presidential Young Investigator Award's duration, research activities of Dr. Steven H. Strauss (Oregon State University) will focus on the molecular phylogeny of forest trees, whereas efforts during the latter part of the funding period will concentrate on genetic engineering aspects (gene transfer systems, tree-pathogen interactions, and control of gene expression). With regard to molecular phylogeny, studies in Strauss' laboratory have dealt with chloroplast genome mapping and restriction site analysis of conifers. The PCR (polymerase chain reaction) method, coupled with automated gene sequencing of amplified DNA, is expected to provide major new insights into the phylogeny of plants and factors controlling molecular evolution's tempo and mode. The progression to a genetic engineering focus is dependent upon development of gene transfer systems that will enable incorporation of "foreign" genes into plants. Current work is aimed at insertion of toxin genes from the insect pathogen, Bacillus thuringensis, into the genomes of coniferous trees. The potential economic advantages of developing such a deterrent to damage from forest insect pests are enormous. Attempts will be made to characterize the molecular physiology of a major root pathogen of Douglas fir trees. The expectation is that it will then be possible to isolate and modify the genes responsible for pathogenicity, thereby gaining insights into host-pathogen interactions and making feasible disease-resistant genetic lines of trees. Finally, the most scientifically ambitious goals of this research are directed toward manipulation of the systems controlling gene expression. This will first involve characterization of the major control sequences governing tissue-specific and environmental-responsive gene expression in conifers. Thereafter, it ought to be possible to splice desired sequences onto various target conifer genes.